SBIR Phase II: Cost-effective manufacturing of a novel nutrient-dense chickpea dough platform for mass-market processed foods

The broader impact of this SBIR Phase II project is in providing an alternative to the calorically dense and nutritionally poor processed foods that have proliferated in the American diet due to their price, convenience, palatability, and shelf-stability. This project advances a nutrient-dense crunchy ingredient platform based on legumes and having the ability to customize shape, texture, and nutritional profile to meet a broad variety of crunchy applications in disparate categories. Due to their neutral flavor, these crunchy ingredients can be flavored with various flavor systems, providing a low-calorie, high-fiber, and high-protein alternative to consumer favorites such as graham crackers, cereals, chips, granola, and cookies. Providing healthier alternatives to traditionally unhealthy consumer products has the potential to beneficially impact public health, preventing diet-related chronic diseases such as obesity, type II diabetes, cardiovascular disease, cancer, and other related co-morbidities.

This SBIR Phase II project focuses on the formulation and processing development necessary to expand a legume-based ingredient platform and overcome the significant technical hurdles in scaled manufacturing. The primary innovation lies in a novel method of structuring fibers and proteins into a crunchy and aerated matrix through both formulation and downstream processing. This project addresses the variation in product behavior and quality caused by batch size and manufacturing line configuration. The dough on which these ingredients are based differs highly in its rheological properties in comparison to the gluten-based doughs for which most manufacturing lines are configured. To compete with commodities, a variety of manufacturing lines with different drying technologies must be evaluated in their ability to maximize throughput while minimizing input costs and meeting product quality requirements. The major technical objectives of this Phase II project are: 1) Expand ingredient platform variants to achieve specific product characteristics to support customer claims, ingredient labeling, physiological impact, and costs; 2) Evaluate various manufacturing lines and their technoeconomic potential to scale ingredient production; 3) Develop ingredients to meet requirements necessary to respond to physical and environmental stressors in the supply chain.